vBNS Connectivity for Kent State University

ABSTRACT "vBNS Connectivity for Kent State University" Kent State University PI: Bruce Petryshak ANI-9810391 This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to the vBNS. Applications include projects in large scalable parallel quantum Monte Carlo, liquid crystal research, distributed operating systems for high-speed networks, distributed computing, and several mathematics projects. Collaborating institutions include Arizona State, New York University, Courant Institute, Case Western Reserve, NIST, University of Virginia, University of California San Francisco, Georgetown, Stanford and Texas Tech.